SFS (Scholarship Track): An Interdisciplinary Information Assurance Curriculum

Computer Science (31)

Scholarships for both undergraduate and graduate students are being given by this institution to students seeking degrees in a broad-based Information Assurance (IA) program with a special focus on computer forensics. The institution's IA program offers a blend of education, research, experiential learning, and professional development. The computer forensics program focus benefits from a close association with a nearby Regional Computer Forensics Laboratory. Each scholarship recipient completing this IA degree program serves for two years as an IA professional in a Federal government agency.